Shipboard Scientific Support Equipment for the R/V Savannah

ABSTRACT

25 July 2010
Proposal Number: 1012818
Institution: Skidaway Institute of Oceanography
PI: J. Sanders

The proposal requests several Shipboard Scientific Support Equipment (SSSE) items for the R/V SAVANNAH operated by Skidaway Institute of Oceanography; namely portable deck capstans, navigational echo sounders and trawl blocks. These items will improve safety, bring the vessel into compliance with latest UNOLS standards, and enhance science support capabilities.

Broader Impacts: The R/V SAVANNAH supports federally funded scientific research in the southeast Atlantic in order to expand human knowledge of the ocean environment. During operations, the vessel routinely exposes graduate and undergraduate students to seagoing oceanography. Pubic outreach is also achieved through open house events and educational cruises funded by both NSF and the State of Georgia. The SAVANNAH is scheduled to complete approximately 60 NSF sponsored days in 2010.